Polynomial ergodic theorems and Ramsey theory

ABSTRACT:
The project concentrates on multiple recurrence and convergence in
dynamical systems with a focus on polynomial actions of abelian and
nilpotent groups. The problems considered lead to diverse applications of
ergodic theory to combinatorics, number theory and algebra which are
inaccessible so far by conventional methods. The polynomial Szemeredi and
Hales-Jewett theorems proved by the proposers in the recent years have
since been extended by the proposers and their colleagues in different
directions, each providing a better understanding of the phenomenon of
multiple recurrence along polynomials and offering new vistas of research.
The directions of study touched upon in this proposal include
(but are not limited to) the deeper study of multiple recurrence for
nilpotent group actions and the investigation of polynomial multiple
recurrence in the framework of IP-systems. Another interesting area
considered in this proposal has to do with convergence of ergodic averages
naturally appearing in the theory of multiple recurrence and its
applications. The results recently obtained by the proposers indicate a
dichotomy between the behavior of ergodic averages depending on whether
the acting groups have polynomial or exponential growth. The
related conjectures formulated in the last section of the proposal are
shedding new light on these questions.

The theory of multiple recurrence that we focus on in this project uses
the ideas from several diverse areas of mathematics and aims to advance
our knowledge about the intrinsic properties of dynamical systems which
are related to their long range behavior. An example of a highly
nontrivial fact stemming from our investigations is the regularity of the
behavior of dynamical systems along polynomial time measurements. This
fact, in its turn, has strong applications to seemingly distant areas of
number theory and combinatorics.